Advanced Placement Workshops in Calculus

This two-year project seeks to improve the teaching of Advanced Placement Calculus in high school. Each summer, 16 teachers will participate in a four-week workshop on the BC Calculus syllabus that includes review of mathematics content, discussion of teaching strategies, and exploration of the role of computers and calculators in the teaching of calculus. The workshop will be jointly taught by an Albion College faculty member and an outstanding high school mathematics teacher. Follow-up activities include visits by project staff to participants'schools. A total of 32 teachers from Michigan and surrounding states will participate in the project. In addition to contributions from the participants'school systems, Albion College is contributing an amount equal to 7% of the NSF award.